Optimal Hybrid Control of Buildings with Nonlinear Hysteretic Cladding Connection Elements

9402572 Goodno Experimental and analytical investigations of hybrid control systems designed to combine passive damping provided by cladding-structure interaction with robust active control systems will be continued in this second phase of the overall research. The research plan is organized into three primary tasks: (1) development of new low-dimensional controller designs for robust control of building structures; (2) development of hybrid design approaches for optimization of the combined active (control) and passive (cladding) systems; and (3) experimental verification through simple scale model lab testing. The principal products of the proposed research are expected to be: (a) new approaches to designing low-dimensional controllers in output feedback settings that can be used for robust control of building structures; (b) integrated design methods for active/passive control systems in which the design process concurrently optimizes active and passive subsystem properties; (c) modeling, analysis and synthesis procedures along with representative designs which combine advanced cladding systems with several different active control systems (e.g., active bracing or variable stiffness systems) to form economical hybrid control strategies; (d) development of improved computer models and extension of present software to include consideration of techniques for hybrid control of buildings using architectural cladding; (e) verification of basic hybrid system behavior through scale model lab experiments. ***